CSR: Small: Big Memory: Exploring Memory Management Mechanisms and Policies for Rack-Scale Computers

Large-memory applications, including data analytics, in-memory object
caches, and in-memory databases, are a major consumer of data center
resources. Moreover, these applications can effectively use more
memory than a single computer can provide. Traditional approaches to
scaling these applications involve parallelism across multiple
computers. However, that may not use resources cost-effectively, as
the ratio of processing, networking, and memory is determined by the
configuration of the underlying computers, not the application. This
project explores disaggregated servers, or "rack-scale computers".
These servers consist of pools of processors, memory, and I/O devices
within a rack that can be flexibly allocated to virtual machines based
on the needs of their resident applications.

This project focuses on one aspect of disaggregated servers: managing
a large pool of memory within the rack. Specifically, using this pool
to dynamically add memory to and remove memory from virtual machines.
This will enable applications to handle bursty load without the need
to spin up/down entire virtual machines. In order to effectively
manage memory across virtual machines, the hypervisor will need a
better understanding of how memory is being used, by both the guest
operating systems and applications. Therefore, we are exploring the
interfaces, mechanisms, and policies within and between the
hypervisor, guest operating system, and application that will enable
the use of large disaggregated memories. This research is one step
towards rethinking what a computer is and how to construct one that
better serves data science and analytics applications that can benefit
from large amounts of memory.